FSML:Request to Improve Seawater System at OIMB

The Oregon Institute of Marine Biology (OIMB) conducts research and offers courses on the biology of marine organisms. Resident and visiting faculty, postdoctoral associates, graduate students, and undergraduates use the teaching and research laboratories year round. A seawater water system is essential to the function of a marine station such as OIMB; it permits researchers and instructors to work with live organisms. Currently any growth in the OIMB programs is limited by the amount of seawater that can be stored for use in the teaching and research labs, and the amount of wet laboratory space available for research activities. In this project OIMB will construct a 480 square foot wet lab annex to house new seawater tables space and incubators, and a 30,000 gallon concrete seawater storage tank. This would allow an almost doubling of the amount of seawater that could be stored, thus permitting an expansion of research and teaching activities. It would also provide additional seawater table space in an aquarium annex to be built adjacent to the research building.